CAA: Relationship Between Fatty Acid-binding Proteins and Neurotransmitter Systems in Developing Brain

9509168 Sellner This project addresses the hypothesis that the developmental expression of the heart subtype of fatty acid-binding protein (H- FABP) is related to the simultaneous development of neurotransmitter systems in the brain, namely GABA. The hypothesis is based on 1) similar localization of the proteins by immunohistochemistry, 2) the documented timing of differentiation of particular pathways/regions in the brain at a time when H-FABP is also present, 3) data showing effects of free fatty acids on both the GABA transporter and the GABA-a receptor, and 4) in vitro studies showing an enhanced uptake of GABA by synaptosomes when exogenous H-FABP is added. The hypothesis will be addressed by developing a cell culture system from neonatal mouse cerebellum, using established protocols. The cultures will be examined for their expression of H-FABP using antiserum prepared against synthetic peptides and using synthetic oligonucleotide probes. The presence of the GABA transporter will be verified by measuring 3H- GABA uptake by the cultures. Next, the efdects of exogenously added fatty acids on the levels of H-FABP and on rates of GABA uptake will be studied. Finally, antisense oligonucleotides will be added to the cultures to inhibit the expression of H-FABP, and effects on GABA uptake will be determined. The activities described in this proposal are designed to obtain sufficient pilot data to warrant submission of a major grant proposal. ***